CAREER: Co-Designing, Implementing, and Researching Computing Learning Experiences about Artificial Intelligence with High School Teachers

This project aims to serve the national interest by collaboratively designing, implementing, and researching learning opportunities for Artificial Intelligence (AI) literacy development. It plans to partner with high school computing teachers to develop learning materials for high school teachers and students. As AI-powered applications increasingly shape our lives, there is an urgent need to develop AI literacy within K-12 classrooms for students to meaningfully interact with and evaluate AI. Unlike using AI to further disciplinary learning in STEM classrooms, high school computing classrooms provide a unique opportunity for learners to develop AI literacy. Students can explore fundamental computing concepts underlying AI, such as problem-solving, algorithms, and data science, and can create applications by writing computer programs. At the same time, effective teacher preparation, co-designing curricular materials with teachers, and developing local models for continued engagement are crucial to bring about change within computing classrooms. Partnering with teachers, this project intends to iteratively design activities that support the development of AI literacy, and to research the implementation within classrooms and teacher professional development sessions. The project plans to produce a research-based framework for building capacity for AI literacy within high school computing classrooms by co-designing curricular materials with teachers, providing a blueprint for enabling AI education in K-12 classrooms.

The scope of the project involves conducting two two-year-long iterations of in-depth qualitative studies to understand AI literacy development across teacher professional development (PD) sessions, co-design sessions, and classrooms within the Exploring Computer Science (ECS) program, an introductory high school computing program that involves thousands of students and teachers each year. Evidence of teacher and student learning from classrooms and PD will inform revisions of the framework and curricular materials. Publications will provide insights into involving teachers as PD facilitators, co-designers, and practitioners while contributing to the pressing questions around teaching AI in high school classrooms. The co-design process will simultaneously generate new curricular and teacher PD materials and inspire future work by providing guiding principles for designing AI literacy development opportunities for high school computing classrooms. The project will also include developing a course to be offered by the university's College of Education, which will support learning and teaching of AI literacy among in-service teachers across the state of Illinois. The project aims to disseminate products and research findings to national and local teacher communities such as the Computer Science Teachers Association (CSTA) and the Learning Technology Center, a teaching resource hub funded by the Illinois State Board of Education.

The NSF CAREER:EDU Program supports early-career faculty who have the potential to serve as academic role models in research and education and to lead advances in the mission of their department or organization. This project is co-funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts, and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.